Studies of Supernovae and Supernovae Remnants

Supernovae are the most energetic stellar explosions known, capable of ejecting matter at thousands of kilometers per second into their environment. The ejected matter expands with supersonic speed, compresses interstellar gas, and enriches it with heavy elements that was synthesized by the parent star. The Principal Investigator (PI) proposes to continue with his observational research, previously funded by NSF, on supernovae and supernova remnants. He will be using the new generation of solid-state imagers and spectrometers available at the National Optical Astronomy Observatory (NOAO) and at other observatories. In particular, the PI will study the events in the evolution of massive stars that lead up to supernova explosions and the effects such explosions have on the interstellar medium in our and other nearby galaxies. Answers will be sought to such issues as the frequency of and energy released by supernovae, the rate of expansion of supernova ejecta, the chemical evolution of galaxies, and the frequency of star formation. Special attention will be accorded to Supernova 1987A, whose explosion was observed in February 1987 in the Large Magellanic Cloud. Model atmospheres and brightness observations of supernovae will be used to measure distances to nearby galaxies.